Research Experiences for Undergraduates in Chemistry at Rochester Institute of Technology

Dr. Jerry Adduci and other members of the Chemistry Department of the Rochester Institute of Technology are being supported for a Research Experiences for Undergraduates site in chemistry. For the period 1995-97, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. The projects include a full range of chemical, theoretical, biophysical, and instrumentation approaches to the advancement of polymer science. A special feature of the program is involvement with local industry through on-site seminar and plant visitations.